Presidential Awards for Excellence in Science, Mathematics, & Engineering Mentoring (PAESMEM)

Science and Mathematics Investigative Learning Experiences (SMILE) Oregon State University
Susan J. Borden

SMILE serves Native American, Hispanic American and other economically disadvantaged youth in grades 4 through 12 through hands-on experiences in science and mathematics. Weekly meetings with twenty students and two teachers are the backbone of the program. Students also participate in field trips and community projects with practicing scientists and engineers. SMILE began in 1988, serving 80 students in four middle schools. The program now serves more than 700 elementary, middle and high school students along with 70 teachers, in 39 schools. Eighty-five percent (512) of students that participated in SMILE for more that one year graduated from high school. Ninety-eight percent of the SMILE class of 1998 continued on to college. The Oregon-based SMILE program has been successfully replicated in Rhode Island.